Homological Mirror Symmetry and Applications

During the special year on Algebraic Geometry at the Institute for
Advanced Study, we will have a sub-program on Homological Mirror Symmetry.
The main goal is to put Homological Mirror Symmetry on solid Mathematical
basis.

Besides weekly seminars we will have two conferences:

1) One on Derived Categories in January 2007.

2) One on HMS, Geometric Langlands and Generalized Geometries in March.

We plan to produce proceedings which will help make available these
new results to everybody. Supporting graduate students and new postdocs,
who would like to participate in the program, will be a priority.